CRPA: Little Green Men: A Documentary Film about the Pulsar Search Collaboratory

This CRPA award deals with inspiring youth to science careers and specifically in space science. The Green Bank Telescope in collaboration with the Pulsar Search Collaboratory, the National Radio Astronomy Observatory, and West Virginia University will develop a documentary film describing what pulsars are, how they are identified, and how youths participate in these investigations and discoveries. Through this experience youths learn aspects of space science, mathematics, physics, and computational science. Several young students have discovered new pulsars.

The film will describe the concepts behind pulsars, how they are identified, and how the students can participate. The idea here is that potential students will see that other kids are participating and they may be successful as well. In the film, several well known scientists will be interviewed including Neil degrasse Tyson, Director of the Hayden Planetarium and Dame Jocelyn Bell-Burnell, the lady in Great Britain who discovered the first pulsar. Moreover, they will interview several young scientists who discovered the most recent pulsars through this program.

The objectives of this effort are to be inspirational to young people and to engage the public with the concepts of space science and pulsars.